Deep Currents Near the Northwestern Boundary of the North Pacific

In this project, the PI's will attempt to detect and measure the major mean deep currents paralleling the northwestern boundary of the North Pacific by deploying nine current meter moorings on a line southeastward of Hokkaido, Japan, for a period of 2 years. The direct current measurements will be supplemented with some conventional hydrographic observations.